Symposium: Concepts of Efficiency in Biological Systems; December 27-30, 1988; San Francisco, California

Funds will partially support travel of participants in a symposium on the efficiency of biological systems to be held with the American Society of Zoologists annual meeting.